Surface Chemical Kinetics and Structure Studied by Stimulated Desorption of Neutral Molecules

This research is in the general area of analytical and surface science and in the subfield of surface science. Dr. Becker will study the rates of reactions and the structure of reaction products including both molecules and ions. This research will use electron- and ion-stimulated desorption of molecules and atoms from single crystal nickel surfaces followed by nonselective photoionization. Time-of-flight mass spectrometry will then be used to detect and identify the ions formed. This research will contribute to the better understanding of the rates and mechanisms of surface catalyzed reactions.